Modernization of Plant Physiology Instrumentation at Miami University, Oxford, OH

Fundamentals of Plant Physiology, and other allied courses that use plant physiology instrumentation, now feature modern equipment used to encourage inquiry based learning. The Plant Physiology course is designed for a mixture of non-majors, majors, and pre-service teachers. Computer interfaced equipment includes oxygen electrodes, a gas chromatograph, and photometers, leaf area meters and spectroradiometers. The class analyzes the effects of various parameters on gas exchange and photosynthesis, photobiology, nitrogen metabolism and respiration.